GRADUATE RESEARCH FELLOWSHIP PROGRAM

WPC4 2 B P Z Courier 10cpi #| x ZK x 6 X @ 87 X @ HP LaserJet III HPLASIII.PRS x @ , \ , a | X @ 2 2 B V P Z #| x Courier 10cpi ? x x x , ZK x 6 X @ 87 X @ HP LaserJet III HPLASIII.PRS x @ , \ , a | X @ 2 2 F ` 2 93 55771 Fellowship Abstract done to override system error ***